Systemic Initiatives: Student Achievement Analysis Study

Four research questions will guide the project's work:

1 - What are the most effective ways the data sets submitted to NSF by systemic initiatives can be used for evaluating the success of systemic reform and understanding its dynamics, both winthin and across SIs?

2 - How is the precision of analysis required to answer research question #1 above dependent upon qualities of the student assessments and data, including reliability, validity, and comparability of the tests?

3 - What analytic statistical models best fit the data linking the systemic initiative to student achievement and how can these be demonstrated in a prototyype analyses?

4 - What lessons can be learned and communicated to the field from this project about the kind of database design and analysis that is more and less useful for evaluating and understanding systemic reform?